Conference on Minimal Varieties in Geometry and Physics, June 1-7, 2002, Stony Brook, New York

ABSTRACT

Proposal #: DMS-0204589
Conference on Minimal Varieties in Geometry and Physics
PI's: M. Anderson, D. Gromoll, C. LeBrun, M. Rocek
(Stony Brook)

The Dept. of Mathematics at SUNY Stony Brook will host a conference on
MINIMAL VARIETIES IN GEOMETRY AND PHYSICS
June 1 - June 7, 2002
on the occasion of Blaine Lawson's 60th birthday. The progress in the
study of minimal varieties in a broad sense has had a profound impact
on numerous areas in geometry and physics. This conference will bring
together mathematicians and physicists working on minimal varieties
and their recent applications.

The award provides partial support for active researchers in this
area, who otherwise have limited means of funding, to participate in the
conference. Most of the funds will support younger mathematicians and
mathematicians from underrepresented groups.

Confirmed Speakers: S. Bloch, J.P. Bourguignon, R. Bryant, J. Cheeger, T. Colding,
J. Figueroa-O'Farrill, E. Friedlander, H. Gillet, H. Gluck, P. Griffiths,
M. Gromov, R. Harvey, D. Hoffman, P. Lima-Filho, R. MacPherson, W. Meeks,
W. Minicozzi, R. Osserman, M. Rocek, J. Rosenberg, R. Schoen, I. Singer,
G. Tian.

Organizing Committee: M. Anderson, D. Gromoll, C. LeBrun, M. Rocek, A. Phillips,
S. Simanca.

The conference has 4 main themes: minimal submanifolds of
Riemannian manifolds, calibrated geometries, complex subvarieties and
algebraic cycles, and the Dirac operator.

There will be 3 mini-courses:
I. Minimal surfaces in 3-manifolds (Colding and Minicozzi)
II. M-theory and calibrations (Figueroa-O'Farrill)
III.Algebraic Cycles (TBA)

Detailed information on the conference is available at
http://www.math.sunysb.edu/varieties
------------------------------------------------------------